Microanalytical Methods in Neurochemistry

Renewed support for Ewing's research in sensing of neurotransmitters and related analytical chemistry comes from the Analytical and Surface Chemistry Program in the Chemistry Division and the Synaptic Mechanisms Program in Behavioral and Neural Sciences. Research will include assembly of an electrospray time-of-flight mass spectrometer, which will be used to identify and quantify lipids and phospholipids from intact cell membranes. In addition, neuropeptides from single transmitter vesicles will be identified. Mass spectral measurements will complement microelectrochemical detection of neurotransmitters for characterization of neural transmission and transduction. %%% While a variety of small molecules are known to transmit signals from one nerve cell to the next, a variety of larger molecules are also important in understanding neurotransmission and nerve cell function. Among these are fatty substances (lipids and phospholipids) in cell membranes, whose composition varies along the cell membrane and with the state of the cell. The use of mass spectrometry will allow identification and structure elucidation of small numbers of these molecules from single cells. In addition, peptides (small chains or oligomers of amino acids) which transmit or modify transmission of neuronal signals will be identified and sequenced.